Itza Maya Reference Grammar (REU Supplement)

ABSTRACT This research is undertaken in order to prepare a reference grammar of Itza Maya, Yucatecan Mayan language currently spoken by small groups in Peten, Guatemala. There are no modern reference grammars for any of the extant Yucatecan languages. Prior to European contact, Yucatecan languages were recorded hieroglyphically. Itza Maya is a dying language, and it is important for Mayan linguistics and epigraphy to record it before it disappears. On the basis of extensive previous research on the language as well as new fieldwork, a comprehensive, heavily exemplified grammar will be prepared for use by linguists, anthropologists, epigraphers, and others interested in a general reference work for this important language.